FW-HTF-R: Impact of Artificial Intelligence Aids on Clinical Skill Acquisition, Atrophy and Adaptation

Medical professionals learn many complex work skills. In future,
artificial intelligence computer assistants will help these workers
accomplish their work, and even take over some skilled tasks. When
artificial intelligence aids assume skilled tasks, workers may adapt to
rely on the aids, and their skills, if once learned, could atrophy. This
project is investigating how learning and use of professional skills are
changed by artificial intelligence assistants. The project is also
studying how different assistant designs might affect learning and
atrophy. Understanding these issues could lead to re-design of
artificial intelligence aids and how they are used, with ultimate impact
on workplace safety, training protocols, and patient care.

To address these questions, the investigators are focusing on two
critical skills used by clinical professionals: visual search, used by radiologists
examining medical images, and spatial navigation under misaligned
visuomotor spaces, which is necessary to surgeons performing robotic
laparoscopic surgeries. For each skill, human participant experiments are
designed to evaluate the impact of artificial intelligence assistance on
skill learning, adaptation, and atrophy. The investigators are
collecting data from participants without prior experience with these skills, as they learn and use the skills, and from medical residents, as they use these skills. Different artificial intelligence designs are being tested
to understand their comparative impact on these participants' perceptual and spatial
navigation skills. These skills are useful in many other work
contexts, and the findings may generalize beyond these clinical professions.